Access Science: Full Participation Science for Children with Disabilities

9552525 Grunewald The National Easter Seal Society is engaged in a project to introduce young people with disabilities and their families to science, to provide them with access to science, and to familiarize them with the wide range of career options which depend on science and technology. Easter Seal affiliates serve as project sites, and a sub-contract with the American Association for the Advancement of Science led to development of a family-centered activity-based science program. The three major project components are: Family Science events, including hands-on activities, visits by "role models," take home activities, and field trips; an Activity Manual containing twelve themes to be used as the basis of Family Science workshops; Staff Training for Easter Seal staff. Target audiences are elementary and middle school age youth with disabilities and their families.